Magnetospheric Wave Particles Process

This research seeks an understanding of the origin of magnetospheric plasma waves and their influence on the dynamical behavior of trapped particles. This will be accomplished through theoretical analysis and numerical computation. The path integrated growth rate and ultimate damping mechanisms for plasma waves will be studied in realistic model environments using the HOT RAY tracing code. This will establish the conditions for significant wave gain and the effectiveness of energy transfer, via the waves, to other components of the plasma. The stochastic acceleration of particles to high energy and precipitation loss to the atmosphere during resonant interaction with magnetospheric plasma waves will be studied by evaluating the rate of diffusion along the characteristic resonant diffusion surfaces. Several of the proposed topics are relevant to the ongoing GEM inner magnetosphere campaign, particularly as they address processes in the inner magnetosphere and geomagnetic storm conditions.